Experimental and Theoretical Investigations of Surface Photochemistry

This award is made by the Office of Special Projects in the Chemistry Division under the Materials Synthesis and Processing Initiative. The research is a combined experimental and theoretical effort to understand how the presence of a surface influences the photochemistry of an adsorbed molecule. Specific objectives are to use experimental measurements and theoretical simulations to understand how the substrate affects the photodissociation of a bond in an adsorbed molecule and to investigate how the branching among various reaction pathways depends on this elementary step. Experiments will be carried out on methyl iodide and iodine cyanide, whose gas-phase photodissociation dynamics are well known, adsorbed on magnesia, titania and gold, representing an insulator, a semiconductor, and a metal. Surface analysis, mass spectrometry, and gas phase laser-based spectroscopicmeasurements will be employed to determine the branching among reaction pathways and the energy content of photofragments ejected from the surface. %%% The scientific issues addressed in the field of surface photochemistry are broadly relevant to such materials issues as photoassisted deposition, photoresists, surface photodegradation, photolithography and laser- and plasma-assisted etching.